Research Initiation: A Language for Multiprocessors: Design, Implementation, Optimization

The objective of this project is to examine design and implementation issues in languages intended for programming multiprocessor systems. The focus of this project is the SR language, which was originally developed for programming distributed systems. The research will study how to modify SR to support programming in shared memory multiprocessor architectures. It is planned to extend SR to exploit the shared memory by allowing variables and operations to be declared globally or in the specification of a resource. The former would provide truly global shared variables and operations; the latter would provide resource instance-specific shared objects. Other language features to support multiprocessor programming will also be investigated. The implementation of the modified language will build on the current SR implementation; it will provide important feedback on the language features. The implementation work will investigate several optimizations that might be employed in the mutiprocessor environment; e.g., expensive process rendezvous might be replaced by less expensive semaphore or monitor operations. Interprocedural analysis techniques will be used to identify optimizable code. The research will identify what language mechanisms are most appropriate to support multiprocessor programming, demonstrate that such mechanisms can be implemented reasonably efficiently, and provide a usable tool for further investigations into concurrent programming.